Reinstating the LSA Summer Meeting: Reaching out to Graduate Students

With NSF support, the Department of Linguistics and Germanic, Slavic,
Asian and African Languages at Michigan State University will host the
newly reinstated Summer Meeting of the Linguistic Society of America
(LSA) to be held in East Lansing, Michigan, 22-25 June 2006. The
First summer meeting since 1983, this meeting will be oriented
primarily towards graduate students, with the goal of fostering
networking and interaction among graduate students and between
Graduate students and more senior members of the linguistics
community. NSF support will provide travel award stipends for 25-30
students selected to present a paper or poster at the conference.